Conference: Lloyd Roeling Conference in Topology at UL Lafayette

This award provides support for the Lloyd Roeling Conference in Topology to be held March 15-17, 2024 at the University of Louisiana at Lafayette. The Lloyd Roeling Conference is an annual tradition since 1970 and rotates among four subfields in mathematics and statistics. This iteration will provide a forum for algebraic topology in the South and will support the mathematical and professional development of graduate students and postdoctoral fellows in the EPSCoR state of Louisiana as well as nearby regions.

The topic of the conference will be algebraic topology, broadly interpreted, including topics in chromatic homotopy theory, configuration spaces, equivariant homotopy theory, higher category theory, loop spaces and string topology, and tropical geometry. The conference will feature eight plenary lectures as well as short contributed talks. Accessible talks across a variety of areas will encourage cross-pollination between subfields. The conference web page is https://userweb.ucs.louisiana.edu/~c00424469/lr2024/